School of Civil and Environemntal Engineering

An innovative technique for strengthening and retrofitting steel girders in composite steel concrete bridges by epoxy bonding carbon fiber tape/plate to the girder tension flange is presented. The feasibility of this technique will be established via experimental and analytical modeling of coupon specimens. Development of a project to study full-scale composite specimens which utilize this innovative technique will follow. The research is anticipated to result in new knowledge, add to the data base for integrating advanced modern materials into Civil Engineering structures, and help bridge design engineers extend the service life of existing bridges. The knowledge learned will guide a durability study of steel girder bridges with carbon composite laminates. The interactive activities are designed to provide greater visibility of women engineers on campus and thus to encourage female students to pursue a career in engineering. They include: teaching a sophomore level course and senior/graduate level course; organizing a seminar series enhancing the visibility of women who hold academic, industry, or government, positions within various specialties of Civil Engineering; and assisting SWE members in organizing an engineering activity during National Engineers Week to enhance visibility of female engineering students to high school and/or grammar school students.